Dynamics of Nonlinear Differential Equations

We propose studying fundamental qualitative properties of various classes
of nonlinear dynamical systems, as they arise from differential equations.
In particular, our emphasis is devoted to lattice dynamical systems (that
is, spatially discrete systems) and differential delay equations. Questions
related to the existence of equilibria of lattice systems which exhibit
spatial patterns, traveling wave solutions which are asymptotic to such
patterns, anisotropic (crystallographic) pinning of such waves, and related
stability properties, will be studied. We also propose to study such systems
with time delays (cyclic systems), and to observe the emergence of patterns
resulting from a singular perturbation structure. A significant portion of
the proposed research involves the development and implementation of new
tools and techniques, as well as the extension of existing techniques of
dynamical systems to new situations.

We are developing new mathematical techniques in order to analyze differential
equations which arise as models in various areas of science. A wide range of
scientific disciplines is represented, including biology, chemistry, electrical
circuit theory, image processing, and material science. While this is a very
broad scope of inquiry, the specific problems to be studied exhibit features
in common -- spontaneous formation of patterns, self-sustained fronts and
oscillations, regulation by internal feedback (often with time delays) --
which can be analyzed with some of the basic tools of dynamical systems theory.
It is expected that the resulting the mathematical advances arising from these
studies will increase the knowledge of, and will provide insight into both the
abstract theory of dynamical systems, and the scientific areas of inquiry.